Mathematical Sciences: Integral Geometry and Analysis on Affine Symmetric Spaces

Gindikin will investigate multidimensional problems in integral geometry and analysis on affine symmetric spaces. The first part of this project will be to construct local inversion formulas and to relate them to the representation theory of Lie groups. The second part of the proposal will consider analysis on homogeneous cones and Siegel domains with an aim towards developing explicit realizations of results from representation theory, including Plancherel measure and spherical functions. The theory of Lie groups, named in honor of the Norwegian mathematician Sophus Lie, has been one of the major themes in twentieth century mathematics. As the mathematical vehicle for exploiting the symmetries inherent in a system, the representation theory of Lie groups has had a profound impact upon mathematics itself and theoretical physics, especially quantum mechanics and elementary particle physics.